Risk Judgment and Community Cancer Clusters

Public concern over cancer clusters - unusual and unexplained increases in the occurrence of cancer is space and time - has increased substantially over the past few years. In this research, the PI will examine why communities perceive that cancer clusters exist and examine how epidemiological risk communications influence community members' risk perceptions. ╝Á¢Á/╝│© ╗┐Á¢¥╣?>¢ Á└?%└Á /╝?┐>┤ ¥©Á ╗┐Á¢¥╣?> ?Â ┴©Á¥©Á╝ ¥©Á ¢?%┐¥╣?> ¥? /> ?║¥╣_╣:/¥╣?> ?╝ │?>¢Á>¢┐¢ ║╝?▓%Á_ ?╝ / ║/╝¥╣│┐%/╝ Õ┐┤À_Á>¥ ?Â │%?¢Á>Á¢¢ ?╝ ┤╣¢¥/>│Á ╣¢ -_Á/>╣>ÀÂ┐% - ╣> ¥©Á ¢Á>¢Á ¥©/¥ ╣¥ ╣¢ >?¥ /> /╝¥╣Â/│¥ ?Â ¥©Á ║/╝¥╣│┐%/╝ _Á/¢┐╝Á_Á>¥ ¢│/%Á ?> ┴©╣│© ╣>║┐¥ └/╝╣/▓%Á¢ ┴Á╝Á /¢¢Á¢¢Á┤